Ada Quality Toolset

This research will address some key technical problems that will need to be resolved before proceeding with the development of a comprehensive and flexible set of Ada program quality enhancing tools, the Ada Quality Toolset (AQT). These tools will support Ada system developers by checking, and where appropriate enforcing, a set of Ada programming style guidelines. Specific toolsets will be configured from a collection of general purpose tool components, customized to the precise needs of a project or a developer's role within a project, and applied by developers during system development. The specific technical problems that will be resolved by this research include: o identification of guideline-defined Ada program properties which can be checked automatically. o feasibility of checking high-level semantic properties of Ada programs. o identification and outline specification of the general purpose components which will be instantiated and configured into specific toolsets. o definition of a software architecture that supports component instantiation and configuration, and toolset customization and application.